Positive Mass, Singularities, and Supersymmetry

Abstract

Award: DMS-0504890
Principal Investigator: Mark A. Stern

In collaboration with Anda Degeratu, the principal investigator
will continue their study of harmonic spinors on manifolds with
degenerating spin structures. Their primary goal is to use these
degenerating spin structures to extend Witten's technique for
proving the positive mass theorem to new classes of higher
dimensional nonspin manifolds. They will also investigate the
application of index theory to these degenerate spin structures
in order to find new relations for the A hat genus on nonspin
manifolds. The principal investigator will also continue his
study of a geometric model of B fields and the higher p-form
potentials arising in string theory, which is suitable for
understanding how these fields affect the application of
geometric analysis to string theory. He will then apply this
improved understanding to various questions in string theory,
including joint work with Savdeep Sethi on the analysis of
gravitational anomalies of field theories arising from string
theories on singular spaces.

At low speeds and masses, general relativity should reduce to
Newton's theory of gravity. This correspondence is confused by
the fact that there is no definition of mass in general
relativity which allows one to define the mass density at a
single point in space. One can only define the mass of large
regions. Physicists have introduced several notions of mass to
obviate this difficulty, the best known of which is the ADM
mass. The positive mass conjecture posits that this complicated
ADM mass is never negative. This is important because a negative
mass universe seems physically unreasonable. Moreover, the truth
of the positive mass conjecture has strong implications for the
very stability of space. In lower dimensions (including 4) this
conjecture was proved by Schoen and Yau. Recent work in string
theory has led to the study of gravity in more than 4 spacetime
dimensions and thus interest in higher dimensional positive mass
theorems under investigation in this project. Many related
questions arising in the gravity theories produced by string
theory are not currently amenable to careful mathematical
analysis because the correct mathematical translation of some of
the important string theory concepts, such as higher p form
potentials, remains unclear. One of the goals of this project is
to provide and apply such a translation.